"Forces of Nature" -- A Large-format Film

National Geographic Television, in Collaboration with Graphic Films, is producing a 40-minute, large-format, documentary film about the scientific quest to understand some of the most dramatic geological and meteorological events we experience -- volcanoes, earthquakes and violent storms. The goals of the film are to inform audiences about geological and meteorological forces which greatly impact our planet, present the scientific research being performed in an effort to understand and predict these forces, portray scientific role models and to stimulate a greater appreciation and interest in the Earth sciences.

Informal education outreach will include:

A "Forces of Nature" website that will include educational resources targeted to the general audience as well as to students and teachers.

Museum and Family Activity Guides

The National Geographic Society will support public programs at science-technology centers by providing access to scientists who work in the areas of science covered in the film.

National Geographic's cable program Explorer (carried on MSNBC) will produce a themed show around "Forces of Nature" to coincide with the launch of the film.

A companion book

In addition, outreach materials for formal education will include:

A "Forces of Nature" Teacher's Guide
A teacher training seminar to be conducted at the first 20 theaters in the U.S. that lease the film
Workshops at the national conferences of the National Science Teachers Association, the National Council for the Social Studies and the National Council for Geographic Education.
Instructional information in National Geographic for Kids, the classroom magazine for elementary school students in grades 3-6.

The Executive Producer for the film will be Lisa Truitt. George Casey will be the Producer/Director. The Lead Science Advisors are Stephen Schneider, Professor of Environmental Biology and Global Change, Stanford University; James Shymansky, Professor of Science Education, University of Missouri-St. Louis; and James Walker, Professor Emeritus, Space Physics Research Lab, Department of Atmospheric, Oceanic and Space Science, University of Michigan.